A Framework for Distributed Sensing and Control

In this project, the scope of logical sensors will be extended to a form operationally and methodologically more appropriate for distributed sensing and control. Specific objectives include: the development of a methodology for the specification of distributed sensing and control, in particular, one based on a reasonably well understood underlying computational model (e.g., dataflow); and the development of an operational environment for computing with respect to the methodology. This will include the assessment of its suitability with regard to performance and effectiveness in terms of physically distributed implementations.